Research Experiences for Undergraduates in Chemistry at the University of Michigan

This Research Experiences for Undergraduates (REU) Site project is in the field of chemistry. For a three-year period beginning in 1992, eight undergraduate students will spend ten weeks each summer engaged in basic research in analytical, inorganic, organic, physical, and biochemistry under the direction of the faculty members in the Chemistry Department. A unique feature of this REU program is that only women and minorities will be recruited.